WORKSHOP ON EMBEDDED SOFTWARE

Alur

EMSOFT 2003 Workshop - the Third International Workshop on Embedded Software, is held October 13-15, 2003 in Philadelphia on the campus of the University of Pennsylvania. The proceedings of EMSOFT 2003 are published as a volume in the Lecture Notes in Computer Science series by Springer.

The purpose of EMSOFT 2003 is to bring together researchers, developers, and students from academia, industry, and governments so that the science of embedded software and the technology of their applications an be advanced. The purview of the workshop spans all areas of embedded software, including system design and integration methodologies, scheduling and execution time analysis, models of computation and formal methods, communication protocols, and fault tolerance. Currently, academic papers on embedded software are dispersed at many different conferences, and EMSOFT offers a unique venue with the central focus on principles of embedded software.